Correlation in Packet Interarrival Processes on High Speed Networks

9253114 Bottomley The principal investigator (PI) will study the correlation present in the packet interarrival process associate with high speed networks. Since this is a planning grant, the PI will continue her review of the literature, attend one or more conferences in the area, select a network for measurement, and begin research. The outcome of the planning grant will be a proposal to be submitted to the National Science Foundation. ***